Ring Closing Metathesis of Enynes-Mechanistic Study and Application

The focus of this research involves five goals: First, to develop a general and efficient enyne ring-closing metathesis (RCM) platform for scope and mechanistic studies. Second, to define the parameters that control the ring closure as well as the E/Z selectivity of the resulting dienes. Third, to study the mechanism of the enyne RCM. Fourth, to generate new ruthenium complexes via the enyne RCM. Fifth, to to apply the RCM methodology to the synthesis of putative 9-membered ring cores of the anticancer antibiotic C-1027.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Daesung Lee in the Department of Chemistry at the University of Wisconsin, Madison. Professor Lee will focus his work on the development of a new process for the formation of macrocycles (large carbon rings) using the ring-closing metathesis of enynes. Both mechanistic and synthetic approaches will be followed in the project and the methodology will be used to prepare compounds with interesting biological properties. The project has potential for broader impact in the pharmaceutical industry and will serve as an excellent training ground for graduate students.